CSR-AES: User Support Software for a Fresh Breeze Computer System

The Fresh Breeze Project concerns a multi-core chip
architecture that addresses the need for better programming
support for parallel computation, including composability
of parallel programs. This is accomplished by
supporting global virtual memory, employing a novel memory
model based on fixed-size chunks, and virtualizing processing
resources through fine-grain scheduling of threads of
computation using an on-chip scheduler.
A cycle-accurate simula­tion of the architecture serves
for testing and evaluating the architecture in
illustrative applications.

Many functions of a conventional operating
system relating to memory management, file system support,
and process scheduling are replaced by hardware features in the
Fresh Breeze architecture. In consequence, Fresh Breeze
operating software differs substan­tially from a conventional
operating system. The Fresh Breeze architecture provides
special classes of computing objects: futures to support
data streams and guards to support transactions.
The Fresh Breeze multithread program execution model is supported
directly by the Fresh Breeze architecture, so these features
are available for writing support soft­ware for user authentication,
resource management, input/output facilities, and directory and
file management. It is planned to make an FPGA implementation
of the Fresh Breeze architecture available to interested
institutions by means of the RAMP prototyping infrastructure.

Benefits of the project include the
possibility of a powerful new computing platform with effective
support for the development of robust software for parallel
computing, leading to higher programmer productivity and
performance. Benefits to the broader community
include better computing facilities for goals such as
accurate weather forecasting, drug design, and sustainable
development.